Integrating Equity into Benefit-Cost Analysis: Theory and Practice

Environmental policy decisions are often evaluated either on their impacts
on high-risk communities or on the magnitudes of their net societal
benefits, but both elements are rarely considered in the same analysis. This
makes it difficult to inform policy decisions when there may be tradeoffs
between equity and efficiency. This project focuses on synthesizing concepts
and methods across two disciplines often at odds with one another -
environmental equity analysis and risk-based benefits assessment - to better
inform choices among alternative environmental policies.

To address these issues, this project will both develop quantitative
measures of environmental equity suitable for air pollution benefits
assessment and refine the benefits assessment methodology to better account
for heterogeneity in exposure patterns and susceptibility to disease. The
appropriateness of these methods will be evaluated using specified criteria,
through stakeholder feedback, and through two case studies. The first case
study will examine alternative proposals to control emissions from power
plants, a policy decision where much debate has centered on distributional
issues and where impacts are found on a national scale. The second case
study will consider control strategies for mobile source emissions, with
both national and local analyses to inform decision making at multiple
levels. Considering both ground-level emissions in urban settings and
emissions from elevated point sources will allow for issues of geographic
scope and resolution to be addressed in detail, a topic that has posed
difficulties in both environmental equity analysis and benefits assessment.
More generally, these case studies will advance the analytical techniques
used in both environmental equity analysis and air pollution benefits
assessment, while answering timely policy questions and providing
educational materials for classroom and community settings.